CAREER: Supporting Elementary Science Teaching and Learning by Integrating Uncertainty into Classroom Science Investigations

This is a Faculty Early Career Development Program project responsive to a National Science Foundation-wide activity that offers the most prestigious awards in support of early-career faculty who have the potential to serve as academic role models in research and education. It was submitted to the Discovery Research K-12 program, which seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics by preK-12 students and teachers through research and development of innovative resources, models, and tools. The goal of this study will be to improve elementary science teaching and learning by developing, testing, and refining a framework and set of tools for strategically incorporating forms of uncertainty central to scientists' sense-making into students' empirical learning. The framework will rest on the notion that productive uncertainty should be carefully built into students' empirical learning experiences in order to support their engagement in scientific practices and understanding of disciplinary ideas. To re-conceptualize the role of empirical investigations, the study will focus on the transitions between the experiences and processes students seek to understand, classroom investigations, evidence, and explanatory models as opportunities for sense-making, and how uncertainty can be built into these transitions. The project's underlying assumption is that carefully implementing these forms of uncertainty will help curriculum developers and teachers avoid the oversimplified investigations that are prevalent in K-8 classrooms that stand in stark contrast to authentic science learning and the recommendations of the Framework for K-12 Science Education (National Research Council, 2012). Accordingly, the project will seek to develop curriculum design guidelines, teacher tools, professional development supports, and four elaborated investigations, including sets of lessons, videos, and assessments that embed productive uncertainty for second and fifth graders and designed for use with linguistically, culturally, and socio-economically diverse students.

The hypothesis of this work is that if specific forms of scientific uncertainty are carefully selected, and if teachers can implement these forms of uncertainty, elementary students will have more robust opportunities to develop disciplinary practices and ideas in ways consistent with the Next Generation Science Standards (NGSS) (Lead States, 2013). Employing Design-Based Research, the three research questions will be: (1) What opportunities for sense-making do elementary school empirical investigations afford where we might strategically build uncertainty?; (2) How can we design learning environments where uncertainty in empirical investigations supports opportunities for learning?; and (3) In classrooms with sustained opportunities to engage with uncertainty in empirical investigations, what progress do students make in content understandings and the practices of argumentation, explanation, and investigation? The work will consist of three design cycles: Design Cycle 1 will involve two small groups of six teachers in adapting their curricula to incorporate uncertainty, then describe how students engage around uncertainty in empirical investigations. Design Cycle 2 will involve the same small groups in implementing and refining task structures, tools, and teacher instructional strategies. In Design Cycle 3, teachers and researchers will further refine lesson materials, assessments, and supports. The project will partner with one school district and engage in design research with groups of teachers to develop: (1) a research-based description, with exemplars of opportunities for student sense-making within empirical investigations at both early and upper elementary grades; (2) a set of design principles and tools that allow teachers to elicit and capitalize on sense-making about uncertainty in investigations; and (3) four elementary investigations elaborated to incorporate and exemplify the first two products above. These materials will be disseminated through a website, and established networks for supporting implementation of the NGSS. An advisory board will oversee project progress and conduct both formative and summative evaluation.